KDI: Multidisciplinary Collaboration

This proposal primarily funds a large workshop involving all KDI PIs (2 years, 3 areas). The workshop will permit exchange of results among the KDI awardees and also permit an understanding of what has been accomplished by the awards in this program. Of particular importance is an effort to understand the effects of the interdisciplinary focus of KDI and what that has meant in terms of final research results. The meeting will be held in New Orleans in the late spring of 2002. Statistics, new research results, and information about the KDI program will be gathered as part of the workshop.